Research Experiences for Undergraduates on the Juneau Icefield, Alaska

Ten undergraduates will be selected to participate in research projects on the Juneau Icefield, Alaska, including: geology, glaciology, geophysics, glaciometeorology, geobotany and surveying. This research/educational activity aims at a total systems study of one of North America's largest icefields. Each undergraduate will select a research project and be encouraged to exercise as much independent judgement and initiative as possible in its development. Undergraduates selected will be earth science students who demonstrate scholarly aptitude, motivation, and research potential. Because the research experience will involve field work in rugged glacier terrain, physical stamina will be necessary. The staff will be available throughout the season for advice and help, including lectures, seminars and site specific instructions in methodologies to insure an effective research experience.